SCI: ETF Early Operations - Indiana University

The Extensible Terascale Facility (ETF), or TeraGrid, (TG) involves nine resource providers operating high-performance computing, information, and visualization facilities, interconnected with a dedicated optical network and integrated with a set of common software that presents the user community with a cohesive set of resources and services. On October 1, 2004, the ETF will conclude a three-year construction effort to create this distributed environment and will transition into an operational state. This proposal outlines a set of services to be provided at Indiana University (IU) as part of the TeraGrid system.

IU was funded, along with Purdue University, in September 2003 by the NSF to be part of the TeraGrid via the Terascale Extensions Program (TEP). As part of the ongoing maintenance and operations (M&O) phase, IU requests funding via this proposal for early operations of its ETF facilities and for TG services for the period from October 1, 2004 through March 30, 2005. Resources and services described herein will be provided to the scientific and engineering community by IU as one of the nine TG RPs. This proposal describes both IU-specific functions as well as IU.s participation in TG-wide activities.